Collaborative Research: CSR-PSCE, SM: Adaptive Memory Management in Shared Environments

Program performance is highly dependent on the amount of memory available to the
program. In traditional computing systems, the memory working set of an application
has a bounded size - providing more memory to an application improves performance
until its working set is met. Once the working set is met, additional memory yields little
or no benefit. However, in the presence of garbage collection (a technique for memory
management where space that is unlikely to be reused by an application is
automatically reclaimed), the relationship between program performance and memory
allocation is more complex. Data is managed at three levels: the compiler manages
data objects at the program level, the garbage collector manages the heap at the virtual
machine level, and the virtual memory manager manages virtual memory at the
operating system level. The middle layer plays a critical role. Increasing an application's
heap size can reduce the frequency of garbage collections and improve performance,
but too large a heap may trigger paging and degrade performance.